Conference on 'Ribosome Biogenesis and Nucleolar Function' to be held August 17-21, 2000, at the Granlibakken Conference Center in Tahoe, California

Abstract
MCB-0077577
Lindahl and Zengel

The Ribosome Biogenesis and Nucleolar Function meeting (planned for August 17-21, 2000 in Tahoe, CA), is the fifth in a series of tri-annual meetings. The purpose of these meetings is to give workers in the field, including post-docs and students, an up-to-date view of research addressing all aspects of ribosome biogenesis. Ribosomes are essential to survival of all organisms, from bacteria to humans. The formation of ribosomes requires a complicated, but highly coordinated, set of reactions, including transcription, translation, splicing, RNA processing, trafficking of ribosomal components and assembled precursor ribosomal particles, and RNA and protein modifications. The investigation of this extensive suite of reactions, which collectively accomplish the biogenesis of new ribosomes, requires many types of expertise, including enzymology, genetics, cytology and ultramicroscopic analysis. No single lab can possess all of these types of expertise, yet every worker investigating an aspect of ribosome biogenesis should understand the progress in all other areas. The meeting brings together researchers working on all aspects of ribosome synthesis in a variety of organisms, from eubacteria through humans.